A Model Laboratory for Material Removal Processes.

This project permits undergraduate students to gain experience with a modern material-removal processes laboratory. The laboratory experiments include topics ranging from measurement of accuracy of a machined part to measurement of accuracy of a machined part to measurement of surface finish, cutting forces, tool wear- temperature/chatter. The techniques employed to measure these variables include: measurement of forces using active systems such as quartz dynamometers, measurement of temperature using thermocouples, and measurement of wear from acoustic signals. The major equipment supporting this lab includes: profilometer, peize-electric load cell, a CNC mill, a signal analyzer, an acoustic emission transducer and a data acquisition system. This award is being matched by an equal sum from the grantee.